Mathematical Sciences: Modelling Territoriality and Stability of Wolf-Deer Interactions

The investigators study the spatial and temporal dynamics of territory formation for wolves (Canis lupus) and the resulting impact on the distribution of white-tailed deer (Odocoileus virginianus). Their model is based on field studies from northeastern Minnesota that indicate that adjacent wolf packs form distinct territories that are separated by "buffer zones" where packs rarely trespass. These buffer zones can provide a spatial refuge for the primary prey species: white-tailed deer. The field studies show that deer density is higher in the inter-territorial areas (refuges) and is lower near the center of established territories (where deer populations may be subject to intense predation). The buffer zones may also stabilize wolf-deer interactions by providing a reservoir of deer that can recolonize areas of wolf territory that have suffered heavy predation losses. The mathematical model the investigators develop describes the behavioral wolf-wolf and wolf-deer interactions using a system of coupled nonlinear partial differential equations, and describes the long-term ecological wolf-deer interactions using a system of coupled nonlinear difference equations. The analysis of the model equations will employ mathematical and numerical techniques from areas such as perturbation theory and finite difference numerical methods. This should lead to a detailed quantitative understanding of wolf territorial pattern formation, and an illustration of how territoriality influences the distribution and abundance of deer. The research will have a wider application to the general area of territorial pattern formation; such patterns provide the basis for social organization in many mammals and birds.